Development of a CD-ROM Based Multimedia Teaching Package for Introductory Materials Science and Engineering

9455333 McMahon A three-year program to develop a CD-ROM-based multimedia package for the teaching of an introductory course in materials science and engineering is proposed. It is intended that this package will serve most of the purposes of the lectures in a traditional course so that the classroom time can be devoted to the activities normally carried out in tutorial or recitation sessions. The motivation for this is the increase in teaching effectiveness of such sessions compared to traditional lectures. The package will be built around animations created with Multimedia Director and ancillary programs and video segments showing excerpts from videotaped laboratory experiments created in a separate project, as well as videotaped lecture demonstrations. The techniques necessary for the creation of the animations and for computer-based editing of video tapes have been developed at Pennsylvania during the past year, and the equipment and software necessary for this are already available. The first two years of the project will be devoted mainly to creation of animations and video segments and to evaluating them by classroom use. They will be exported to other institutions via CD-ROM for their use and evaluation. The development of the technique of integrating these with text and voice into an interactive teaching package will also be carried out in the first two years, and the third year will be devoted to completing this package and evaluating it in classroom use so that final adjustments and modifications can be made during the period of the project. The teaching package will be based on a new textbook, now being published, which is part of the development of a new approach to the subject. This is a departure from the traditional type of course in that it reorganizes the subject into two large case studies, one on structural materials, using the bicycle, and the other on device materials, using the WalkmanTM. Experience at Pennsylvania and elsewhere has s hown this to be more effective that the traditional method in an introductory course, especially for nonmajors in materials science and engineering.